Core Support for the Board on Life Sciences

The Board on Life Sciences serves as the National Academies' focal point for a wide range
of technical and policy topics in the life sciences, including bioterrorism, genomics,
biodiversity conservation, and key topics in basic biomedical research, such as stem cells.
The board organizes and oversees studies that provide advice to government and the
scientific community on the biological sciences and their impact on society. The board
maintains expertise in and understanding of the full spectrum of life science disciplines, from
molecular genetics to ecology. This enables it to deal with issues of both basic science (e.g.,
knowledge gaps, research priorities, needed investments) and the higher level policy
concerns that flow from or build on the basic science. The Board also oversees important
studies on the improvement of biology education, particularly at the undergraduate level, and
the maintenance of a strong life sciences workforce.